Mineral Surface and Interface Reactions Observed at the Atomic Level Using Atomic Force and Scanning Tunneling Microscopy and Spectroscopy

The principal investigator will study mineral-fluid interface geochemistry utilizing atomic force and scanning tunneling microscopic and spectroscopic techniques. The ability to actually "see" individual atoms at mineral interfaces will likely to lead to a more fundamental understanding of mineral surfaces and their reactivity, and ultimately will have a wide range of applications in the earth and environmental sciences.